Applications of Modern Liquid Chromatography in Under- graduate Instrumental Analysis

This project gives Chemistry and Geology students laboratory experience in the use of high performance (HPLC) and ion chromatography (IC), two widely used analytical methods. HPLC has become the method-of-choice for the separation and quantitative determination of small amount of many non-volatile or thermally labile compounds in a variety of matrices such as pharmaceutical and environmental samples. IC is a rapidly growing method that is especially well-suited to the determination of anions. The combination HPLC/IC instrument along with a microcomputer gives students hands-on experience in both methods. IR and thin layer chromatography are use to identify the alkaloids and choose the optimum solvent system. The computer data system collects HPLC/IC data and creates data files for export to other software systems. IC is used to determine several anions in natural water samples or food extracts. The effects of solvent modification on IC is demonstrated and the comparison with other methods of anion analysis is preformed. The institution is matching the NSF grant with an equal amount of funds.